Dissertation Research: Systematic Studies in the Hedwigiaceae Schimper (Musci)

With the guidance of faculty adviser Dr. Brent Mishler at Duke University, graduate student De Luna will complete a taxonomic study of the tropical American group of mosses of the family Hedwigiaceae. Field collecting in several South American countries will supplement collections already made by the student from Mexico and Central America. Laboratory culturing of the mosses will provide additional critical growth stages. The scientific study of evolutionary relationships among plant species has benefited from new sources of data and new methods of analysis. Mosses are particularly suitable for an empirical evaluation of the use of developmental (growth stage) data in systematics. Growth experiments under controlled conditions will provide data about the ontogeny and heritability of features used in moss classification, and allow evaluation of the variability and reliability of these characters. The research will result in an improved classification of these tropical mosses, through the use of quantitative and cladistic analyses of developmental anatomy and morphology. In turn, questions about their biogeographic relationships with North American and African forms can be addressed.